Doctoral Dissertation Research in Decision, Risk, and Management Science: Construct Validation of a Team Components Model

Dickinson, Terry L. Rosenstein, Rebecca Old Dominion University 9320608 ABSTRACT The PIs propose to investigate a model of teamwork by using a two-stage research program. In the first stage they will survey 200 members of teams in order to determine the construct validity of an existing measure of team proceses. In the second part of the research the PIs will use a path analyses to assess the relationships among the various teamwork components. The research is particularly timely and important since teamwork is becoming a more prevalent part of the American manufacturing environment.